CISE Research Instrumentation

A minicomputer server will be provided for researchers at Cornell University for research in the Department of Mathematics. This equipment is provided under the Instrumentation Grants for Research in Computer and Information Science and Engineering program. The research for which the equipment is to be used will be in the areas of computational algebraic geometry, algebraic K-theory, splines on polyhedral complexes, dynamical systems, and applied logic.